Presidential Young Investigator Award-Stochastic Modeling of Earthquakes

This action provides the base support for research during the initial year of the Presidential Young Investigator (PYI) Award. The 5-year continuing project, initiated in FY 90, will focus on the development of theoretical bases and earthquake engineering applications of stochastic processes. Two major topics of study will be pursued. (1) Stochastic Modeling of Plane Sources - Instead of traditional model treating the seismic dislocation source as points along a geological fault, a more refined and realistic plane model will be developed. A continous source region is divided into a finite number of point dislocation sources characterized by multiple correlated Poisson random processes. The near field ground motions will be simulated by combining the deterministic wave propagation model and the random seismic source model. (2) Sensitivity Analysis of Earthquake Response of Structures - The measure of the sensitivity for a structural system is defined by what is called a sensitivity function, which is a scaler for the variation of a single parameter in a single-output system; a vector for variations of multiple parameters in a single- output system; or a rectangular matrix for variations of multiple parameters in a multiple-output system. The sensitivity with respect to the time domain variations of mass, stiffness and damping at the same time also will be investigated. The sensitivity will be calculated from a set of sensitivity equations obtained from the governing differential equations. For more complicated cases where multiple outputs are considered, numerical computation and simulation techniques will be used. Unlike the time domain analysis, the response sensitivity in the frequency domain is independent of the input signals. Four measures of sensitivity, namely, the Bode, Horowitz, comparison sensitivity functions and Root sensitivities will be examined. These sensitivity analyses will be used to evaluate the performance of the control of earthquake excited structures.